Mathematical Sciences Research Equipment 1990

This is a grant under the Scientific Computing Research Equipment for the Mathematical Sciences program of the Division of Mathematical Sciences of the National Science Foundation. This program supports the purchase of special purpose computing equipment dedicated to the conduct of research in the mathematical sciences. This equipment is required for several research projects and would be difficult to justify for one project alone. Support from the National Science Foundation is coupled with discounts and contributions from manufacturers and with substantial cost-sharing from the institutions submitting the proposal. This program is an example of academic, corporate, and government cooperation in the support of the basic research in the mathematical sciences. This equipment will be used to support three research projects in the Department of Operations Research and Applied Statistics of George Mason University. The names of the investigators and the titles of their projects follow: Edward Wegman, Three-dimensional Andrews Plots and Three-dimensional Grand Tours; Clifton Sutton and Edward Wegman, Data Set Mapping; and John Miller, Fault Tolerant Parallel Algorithms for Stochastic and Nonstochastic Data.